Reconstruction of the Subarctic Climatic History and High Resolution Dating of Glacier Fluctuations Using Tree-Ring Analysis at Yakutat and Icy Bays, Alaska

9321213 Calkin This award is for a three year study to investigate the subarctic climatic history as recorded largely in the tree-ring record and to precisely date glacial fluctuations of ice tongues terminating in, and occuring at, the margins of the deep, 50-km long fjords of Yakutat and Icy Bays of southeastern coastal Alaska. Chronologies drawn from 500 to 900 year old living trees cross-dated with logs of buried forests at multiple sites in each of the fjords, will provide the main basis for climatic reconstruction over the last two millenia. Climatic and glacial series together are expected to yield the first sound basis for testing response of fjord glaciers to climate change. ***